Shaping the Future Regional Conference for Texas

The University of Texas at Arlington (UTA) will host a regional conference, Shaping the Future, for North Central Texas. The conference builds on the success of the initiatives of the School-to-Work grants to the College of Science at UTA. Other partnering universities are The University of Texas at Austin, The University of Texas at El Paso, and Texas A&M University. Included in the conference are representatives of local school districts, junior colleges, and industry. The conference focuses on four areas of science, mathematics, engineering and technology (SMET) education. These are preparation for careers in SMET, using collaborations in the design of academic programs, stimulating cooperation across institutional boundaries, and effectively integrating technology into each level of curricula.